Archeology and the Natural Sciences

The Center for American Archeology will initiate a six-week, residential, Young Scholars project in Archeology for 30 students in grades 11-12. This project consists of an archeological field and laboratory workshop for high school juniors and seniors at the Center for American Archeology (CAA) in Kampsville, Illinois. The project immerses students in all aspects of archeological research, including field excavation; and it incorporates studies in geomorphology, botany, zoology, and bioanthropology. Coupled with the research training are lectures and activities which explore ethical issues facing modern archeologists. Career choice seminars and experimental archeology also form an integral part of the workshop. Follow-up activities include in-school presentations, attendance at professional archeological conferences, and a participant newsletter.